Analytical Approaches to Singular Perturbation Problems of Significance in Applications

9703382 O'Malley The University of Washington proposes that the research project Analytical Approaches to Singular Perturbation Problems of Significance in Applications be continued, with Professor Robert E. O'Malley, Jr. as the Principal Investigator. The research develops asymptotic methods to solve nonlinear boundary value problems for both ordinary and partial differential equations when solutions feature narrow boundary, shock, or transition layer regions of rapid change. The research will emphasize stiff computation and dynamic metastability, through a consistently hybrid asymptotic/numeric investigation. Special notice will be paid to asymptotically exponentially small terms, which have previously received scant attention, since we are now well aware that asymptotics beyond all orders can be of critical physical significance. Throughout science and engineering, problems often occur which involve singularly perturbed boundary value problems. The best known example is fluid dynamical boundary layers. Analytical and numerical techniques must be combined to effectively attack these important problems. This work rests on a hybrid approach to solving both ordinary and partial differential equations for model problems motivated by application needs.